RUI: Ionic Conduction in Silver Halide Chalcogenide Compounds

The goal of this research is to characterize a series of silver halide chalcogenide compounds for the purpose of deducing transport mechanisms from the patterns and trends observed. The effect of chemical substitution on ionic motion also is examined. Several solid mixtures are prepared by mixing silver halides and silver chalcogenides. Techniques such as x-ray diffraction, calorimetry, and electrical conductivity are used to characterize the prepared solid mixtures. Solid-state electrolytes are being investigated for their potential use in high-power, light-weight batteries. Among the array of possible electrolytic materials, those containing silver typically are found to be good conductors, and thus they are of interest as potential battery electrolytes. In this work, fast ion conductors are prepared from silver halides and silver calcogenides. In a systematic survey, crystal structure, thermal properties, and electrical properties of the cited class of ionic materials are determined to access their suitability for eventual use in batteries.